Multiphase Mechanics of Tumor Encapsulation & Multilobulation

Jackson
0114473
The investigator uses mechanical models to investigate the
mechanisms involved in tumor encapsulation, multiple lobe
formation, and transcapsular spread. Mass and momentum balance
equations are written for the normal cells, neoplastic cells, the
extracellular matrix (ECM) on which they are anchored, and the
interstitial fluid in which they are bathed. This system is
closed by suitable constitutive relations for the mass supply,
the partial stress tensor, and the momentum supply of each
constituent. The former is defined on the basis of
phenomenological observations of tumor cell growth and the latter
is based on the mechanical properties of each phase. The model
equations, consisting of a set nonlinear conservation and
evolution equations, are analyzed using asymptotic analysis,
bifurcation analysis, and perturbation theory in order to
quantify the relative importance of chemical processes (such as
ECM production and degradation) and mechanical properties of the
tissue (such as ECM density and stiffness) in influencing capsule
formation. A further objective is to characterize the
bifurcation that leads to multiple lobe formation. Through
analysis and simulation of the model, the investigator aims to
discover which factors (mechanical and chemical) determine
successful capsule formation and to quantify their influence.
The mechanisms by which a tumor becomes encapsulated as a
continuum of cells or as several lobes of different sizes,
separated by connective tissue, is an interesting, important, and
unsolved phenomenon in tumor biology. In fact, the presence (or
absence) of a dense capsule surrounding a neoplastic mass is a
major determinant of prognosis and the ultimate survival of the
host. Despite the importance of capsule formation, little is
known about the process by which capsules arise. The
incestigator develops a mathematical modeling framework that
describes tumor growth, encapsulation, multiple lobe formation,
and transcapsular spread based on the physical forces and
cellular interactions involved. The specific aims are to use
mechanical models to assist in understanding i) the role tumor
cell, normal cell, and extracellular matrix (ECM) interactions in
capsule formation, ii) the effects of tumor induced ECM
production and degradation on the formation of tumor capsules,
iii) the role of tissue properties such as ECM density and
stiffness in slowing or impeding the process of tumor
encapsulation, and iv) the bifurcation that allows a simple
encapsulated continuum of cells to make the transition to a
multi-nodular form. There are implications for clinical diagnosis
as well as for prognosis.